Stanford University Composites Design Center Planning Meeting

Designing with composites has often been based on a "black aluminum" approach. Some design tolls have been developed to advance the design of composites in the past decade. The manufacturing processes of composites have also been dominated by manual operations. Nearly all manufacturing methods used today are by batch rather than continuous process. An Industry/University Cooperative Research Center on Composites at Stanford University could provide a better mechanism to achieve efficiency and economy in material and processes in terms of energy consumption, dual-use technologies, and friendliness to the environment. The Center will focus on the integrated material and processing technology such as thermoplastic composites and continuous manufacturing processes for low-cost civilian applications. A planning meeting will study if industry will support an Industry/University Cooperative Research Center on Composites Technology to be headquartered at Stanford University. The meeting will assess industry interest and determine if the Center has sufficient support and merit to meet the Industry/University Cooperative Research Centers Program criteria. The proposed research projects will address: 1) computer-based data base for composite design; 2) process research on continuous or fast consolidation such as pultrusion and thermo-forming; 3) research in methodology of testing, inspection, maintenance, and repair of composite material; 4) ultrasonic welding of thermoplastics for assembly and repair; 5) design of low-cost glass-thermoplastics tapes for structural composite; 6) design of low-cost stiffened composite panel. The Principle Investigator is recognized as an eminent researcher and has the resource for this planning meeting. The Program Director recommends Stanford University be awarded $10,000 for three months.